RIA: Design Strategies For Algebraic Specifications

The lack of certain properties, such as completeness or termination, in an algebraic specification of abstract data types is often the result of design errors and can have significant consequences on processes, such as code implementation or verification, which rely on the specification. To alleviate the problem substantial efforts have been devoted to understand better these properties and to implement tools which may guarantee the presence of some properties or detect their absence. To date, no work has yet been published for preventing design errors rather than correcting them. Two strageties are suggested which, under reasonably general assumptions, can be used to produce specifications which are complete, parsimonious, linear, and terminating. The extent to which these strategies are applicable is not yet known. These strategies are simple to use if the difficulties resulting from some book-keeping they require is mechanized. A prototipical implementation improves significantly the productivity of designing specifications and the specification quality. The project has the following goals: Explore the range of applicability of these strategies. In some situations, one property is not achieved, but it is still unclear whether the property is too strong or the strategy too weak. Also, one strategy is not the most convenient one in some situations. Investigate the existence of other strategies. Examples show that these strategies are sufficient for achieving desirable properties, but are not necessary. Other strategies with similar goals and performances may exist. Implement the available stategies. Evaluate and improve their effectiveness through their use for designing a set of basic, general specifications.